Workshop on Multi-Agent Computation in Natural and Artifical Economies, Washington, DC

This award supports a workshop that will foster interdisciplinary collaboration between two scientific communities -- economics and multi-agent systems. Multi-agent systems (MAS) researchers often rely on economic theory to develop concepts and design mechanisms without fully understanding or even knowing about the latest research in economics and game theory. By increasing information exchange between these communities, it is hoped that as new developments arise in these fields, interested researchers can more quickly assimilate them. In addition, by embedding the latest economic theories in multi-agent systems, these systems should become more robust, stable and able to achieve Pareto optimal outcomes.